Acquisition of a 600 MHz NMR Spectrometer for Structural Biology

This award provides funds to purchase a 600 MHz solid-state NMR spectrometer for structural biology studies at Brandeis University. This spectrometer will be equipped primarily for high-resolution solution work as required by several of the Principal Investigators. The studies that will be undertaken with this equipment include studies of the structure-function relationships in electron transfer couples, the structure and mechanism of a prokaryotic K+ channel, the structure-function relationships in a new class of metalloenzymes, the mapping of hydrophobic binding sites on Interleukin 1, the structure of a serpin-protease complex, and the correlation between protein dynamics and function. The acquisition of the spectrometer will allow Brandeis University to remain a vital center of research in structural biology.